Performance and Reliability/Availability Models for the Analysis of Distributed Systems

The purpose of this project is to investigate high level models for the performance and performability analysis of distributed computing systems hosting replicated programs and data files. The high level models studied rely on Stochastic Petri Nets (SPN) used hierarchically to model the behavior of the system in the presence of several types of hardware faults as well as software failures. Systems targeted include real-time systems where critical jobs are deadline constrained. These jobs are partitioned into tasks with precedence relations depicted via a task graph. Although task graphs can be evaluated directly, the evaluation assumes the existence of an unlimited number of processing units. Using Stochastic Petri Nets (SPN) the evaluation of task graphs can include other constraints such as a limited number of processors and existing allocation schemes static or dynamic. At the SPN level, state reduction can be achieved by generating only those states that satisfy functional as well as performance requirements specified in the form of symbolic boolean expressions. A synergistic approach will be investigated to predict the effect of hardware failures on the performance of a system running a single or multiple tasks, that may require access to distributed data files. The combination of SPN models and previously proposed reliability models such as those used to evaluate multiterminal reliability, has the objective of reducing the state space of the underlying Markov model (failure/repair models) even though hardware failures include nodes and links. Once the failure/repair model is generated, performance reward levels can be associated with each structural state of the system. This work will contribute to the systematic design of distributed systems. Design requirements such as delay, network throughput, load, task completion time, cost, etc., will be analyzed in terms of their susceptibility to failures in the hardware support for a particular applica tion. It will also contribute to the evaluation of existing systems in order to detect bottlenecks or weak points and suggest appropriate remedial course of action (to either update or replace existing equipment). The systematic prediction of performance and reliability in terms of selective critical tasks, will aid in the process of updating currently saturated computer systems. In particular, the performance models of partitioned jobs will be useful in predicting the average completion times under userselected allocation schemes via a single SPN-based model of a given task graph. Thus, giving users a rapid assessment on the suitability of particular schemes in a real-time distributed computing environment. ***